Inquiry Into Chaotic Routing

A chaotic router is a non-minimal, adaptive message router that uses randomization in routing and derouting decisions. The use of randomization simplifies the router sufficiently that it's conjectured chaotic routing can be competitive with oblivious routing, achieving equivalent or better average-case performance, greatly improved worst-case performance and fault tolerance. Though the principles of chaotic routing apply to some degree to any topology with multiple paths between nodes, chaotic routers for binary n-cubes are presently under investigation. The goal of the research is to establish a compelling case for constructing an experimental version of a hypercube chaotic router. Towards that end a series of studies are presently underway. 1. The idealized router of the proposal is being converted to practical engineering designs; the details of the chaotic routing logic are being specified. Alternatives include sequential and parallel channel match algorithms, a virtual cut-through alternative to the store-and- forward of the proposal, various alternates for asynchronous channels, various queue sizes, etc. 2. A detailed simulator (with a granularity of approximately a half-dozen gate delays) has been created. Experiments are being run on a 256 node hypercube to compare the different chaotic router designs with various alternative routers, such as oblivious and priority routers. 3. Simulations are being run to analyze the effect of multiqueue size on the latency and throughput of the network. The role of message length on latency and throughput is also being analyzed. 4. Probabilistic analysis, completed last summer, shows that an idealized hypercube chaotic router is deterministically deadlock free and probabilistically livelock and starvation free. The new engineering designs are being abstracted and analyzed to assure that they are consistent with the idealized model of this theory. 5. The first version of a custom CMOS channel design is back from fabrication and is being tested. 6. Alternate implementation strategies, besides custom CMOS, are being investigated. 7. The generality of the chaotic routing principles are being analyzed in the context of different topologies. In particular, various forms of the mesh topology are being studied as alternates. 8. The role of clocked and self-timed logic in chaotic routing is being analyzed in light of the fact theoretical foundations are independent of the timing policy.